DLI-Phase 2: Stanford InterLib Technologies

This Project is a component of the InterLib collaboration between University of California at Berkeley, the University of California at Santa Barbara, and Stanford University. The combined interLib technologies will
be demonstrated on the emerging California Digital Library (CDL), and on a testbed developed by the San Diego Supercomputer Center.

The Stanford Project will attempt to develop base technologies to overcome critical barriers to effective digital libraries. These include: heterogeneity of information and services; lack of powerful filtering
mechanisms that let users find truly valuable information; insufficient availability of interfaces and tools that effectively operate on portable devices; and lack of a solid economic infrastructure that encourages
providers to make information available, and gives users privacy guarantees.